Biochemical Genetics of Host-selective Toxin Biosynthesis

A plant pathogenic fungus in the economically-important genus Cochliobolus is the object of a study designed to examine the genetics of production of a cyclic-peptide, host-selective toxin produced by the fungus. To be examined is whether a 22kb stretch of DNA is a gene cluster encoding all of the enzymes involved in synthesis of the toxin; insights into the evolution of host- selective toxin production in this fungal genus should result from these studies, as well. The production of a host-selective toxin by a plant pathogenic, economically important fungus is to be studied by techniques suitable for determining whether a particular region of DNA encodes the several enzymes involved in synthesis of the cyclic-peptide toxin.//